Computer Science and Mathematics Scholarship Program

This program provides scholarships for academically talented but needy computer science and mathematics majors who are entering their junior year. Particular attention is given to recruiting women and minority students. Each CSMES scholar is assigned at least one faculty mentor and all scholarship recipients will participate in an undergraduate research experience. CSEMS scholars have access to the Advanced Computational Laboratory and the Visualization Laboratory.